Summer School and Workshop: Mathematical Analysis of Water Waves and Related Models

This award provides funding for the conference "Summer School and Workshop: Mathematical Analysis of Water Waves and Related Models" that will be held June 5-9, 2017 at the Bodega Marine Laboratory.

The conference focuses on recent developments in Analysis, especially in the fields of mathematical fluid dynamics. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at: https://www.math.ucdavis.edu/~shkoller/WWSC